CISE Research Instrumentation

Graphics and imaging equipment will be provided for researchers at the University of Georgia for research in the Department of Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the areas of, 1) geometric operations on stripcoded images, 2) graphical display in computer-aided design, 3) development of numerical schemes based on the Inverse Scattering Transform (IST) for solving nonlinear partial differential equations, and 4) spectral geometry of fractals.